Mathematical Sciences/GIG: Geometry, Analysis and Topology: Research, Technology, Industry and Education

The group in Geometry, Analysis, and Topology (GAT) at Texas A&M University is an interdisciplinary group of mathematical researchers in the areas of Algebraic Geometry, Algebraic Topology, Differential Geometry, Geometric Analysis, and Several Complex Variables. In addition to basic research, this group is engaged in the development of innovative programs linking traditional areas in pure mathematics to cross-disciplinary research, industry, technology, and education. The Group Infrastructure Grant (GIG) will provide the funding to build a research infrastructure that will nurture both fundamental mathematical research and its application in cross-disciplinary science and engineering, in industrial mathematics, and in education and training. The group's current and recent interdisciplinary initiatives include applications in chemistry, robotics, visualization, geometric modeling, computational geometry, operations research, computer-aided design, symbolic computation, image understanding, discrete optimization, integer programming, database indexing, and scientific computation. In addition, a successful industrial mathematics program is being developed through joint research and cooperative ventures. Educational and training initiatives are being developed utilizing the World Wide Web, industrial and cross-disciplinary co-ops, mathematical technology courses (TeX, Maple/Mathematica, and WWW) aimed at secondary school instructors, Maple supported undergraduate instruction, and a vigorous program of scientific seminars and conferences. All of these efforts will be strengthened under the Group Infrastructure Grant, affording the GAT group the opportunity to enhance its scientific programs and expand its outreach activities.